The Final Stages of a Collapsing Marine Ice Sheet: Late Glacial Sediment Fluxes, Paleoceanography and Chronology: Hudson Strait and Adjoining Shelf, Canada

This award supports a program to study sediment cores from the Hudson Strait, which is widely believed to have been the drainage path for a major part of the Laurentide Ice Sheet. The goals are to understand the dynamic processes associated with the last stages of collapse of this marine based ice sheet. The project will use oxygen isotopes, carbon-14 ages, benthic foraminifera, and sediment provenance studies to develop a history of the changing paleoenvironmental conditions during the time that the Laurentide Ice Sheet was deteriorating.